Collaborative Research: Uncovering Neutron Star and Black Hole Engines of Ultraluminous X-ray Sources with Radiative GRMHD Simulations

Ultraluminous X-ray sources (ULXs) are exceptionally bright, off-center X-ray sources in galaxies that emit X-ray luminosities exceeding 10^39–10^41 erg/s, far brighter than typical X-ray binaries but below the luminosity of supermassive black holes. This has led to two competing models for explaining the nature of these extreme sources: neutron stars and intermediate-mass black holes (IMBHs). Both models have strong arguments in their favor but also limitations. For example, periodic pulsations in some ULXs suggest that at least some of these sources are powered by neutron stars. This would, however, require accretion rates that far exceed the Eddington limit, which is the theoretical limit beyond which radiation pressure is expected to suppress further accretion of gas. A collaborative project between Princeton University and Georgis Tech University combines two teams with complementary expertise in the modeling of neutron stars and black holes. The proposed work makes use of cutting-edge two-temperature radiative general-relativistic magnetohydrodynamic (GRMHD) simulations to better understand the physics driving accretion in IMBHs and neutron stars. Both principal investigators (PIs) will involve junior scientists in their groups, including undergraduates and high school students, recruited from local high schools and through Princeton’s and Georgia Tech’s REU programs The PIs will also engage with the public through the media and public talks, and will strive to develop stunning and informative visuals to accompany the main results.

The investigators will develop a set of targeted general relativistic magnetohydrodynamic (GRMHD) simulations applicable to Eddington and super-Eddington accreting neutron stars and intermediate-mass black holes. The models will, in the black hole case, span a variety of accretion rates and magnetic field strengths, and include models where the spin axis of the black hole is misaligned with the rotation axis of the disk. On the neutron star side, they will vary the strength and orientation of the neutron star’s magnetic dipole field. The team will quantify the similarities and differences between neutron star- and IMBH-driven ULXs. The work will provide the astrophysical community with a resource to compare observations of ULXs against simulations. The project will also support the long-term development of an advanced radiation scheme for the GRMHD H-AMR code.